7th International Conference on Strangeness in Quark Matter; March 12-17, 2003; Atlantic Beach, NC

The 7th International Conference on Strangeness in Quark Matter will
be held from March 12-17, 2003 at the Sheraton Atlantic Beach Hotel
in Atlantic Beach, North Carolina. This meeting is jointly
organized by Brookhaven National Laboratory, Duke University, and
the Massachusetts Institute of Technology.

The conference will discuss the physics of strange quarks - quarks
which are produced when nuclear matter is heated and compressed to
densities and temperatures as have existed in the Universe a few
microseconds after the Big Bang. The study of strange quarks will
allow for novel insights into the evolution of the early Universe,
the properties of Neutron Stars and the behavior of the fundamental
theory of strong interaction (QCD) under extreme conditions.

NSF is supporting this conference to allow for the active
participation of graduate students and junior postdoctoral
researchers, who will be either given oral presentations or posters.

More information on the conference can be found at the conference
website at http://www.phy.duke.edu/SQM2003.